Computer Synthesis of Contextually Appropriate Intonation for Spoken Language

The structure imposed upon spoken sentences by intonation seems frequently to be orthogonal to their traditional surface- syntactic structure. The involvement of two apparently uncoupled levels of structure in Natural Language grammar appears to complicate the path form speech to interpretation unreasonably and to thereby threaten a number of computational unreasonably, and to thereby threaten a number of computational applications in speech recognition and speech synthesis. This work will complete the specification of a generative theory of intonation in relation to syntax and discourse function, and instantiate the theory by constructing a "discourse-model driven" utterance generator and speech synthesizer. Such a device is to be contrasted with "text-to-speech" generation. The input to the system will be a representation of discourse context characteristic of a simple natural language query system. On the basis of such representations, the system will be capable of constructing a variety of contextually appropriate intonation contours for any given sentence covered by its grammar. Such a device is expected to considerably improve comprehensibility and naturalness of the synthesized speech.